International Global Atmospheric Chemistry (IGAC) Core Project Office

9632757 Prinn This project supports the secretariat of the International Global Atmospheric Chemistry (IGAC) Core Project of the International Geosphere-Biosphere Program. IGAC provides services to the atmospheric-biospheric chemistry research community through: (1) assistance in the coordination of international atmospheric/biospheric chemistry research projects, (2) publication of a quarterly newsletter and other documents that summarize IGAC scientific results, their relevance to society, and future plans, (3) aiding the IGAC Scientific Steering Committee and activity conveners in the planning and execution of their tasks, and (4) serving as the central information and communications center for the IGAC Project. In addition, a "mid-life" scientific and organizational review and evaluation of IGAC is planned. ***